Ocean Carbon and Biogeochemistry Project Office

In January, 2006, an Ocean Carbon and Biogeochemistry (OCB) Scientific Steering Committee (SSC) was created by NSF, NASA, and NOAA to provide leadership to the U.S. ocean research community by identifying research priorities and promoting, planning, and coordinating collaborative, multidisciplinary research opportunities in ocean biogeochemistry. In conjunction with the founding of the SSC, the OCB Project Office was established to provide scientific and logistical support for the SSC and OCB activities. Over the past three years, the OCB Project Office has established an annual OCB summer science meeting series, conducted targeted scoping workshops on specific science questions, supported U.S. participation in national and international science and coordination activities, hosted a minority student program, and created an OCB website and newsletter for distribution of OCB results.

Under this award, researchers at the Woods Hole Oceanographic Institution will receive renewal support to continue the activities of the OCB Project Office: 1) Provide logistical support to the OCB SSC for its meetings, production of reports, and other SSC activities; 2) Organize community workshops, short courses, and symposia; 3) Communicate OCB products and activities to the national and international scientific community and broader audiences, serving as a clearing house for information related to U.S. and international ocean carbon cycle science programs; and 4) Interface with other national and international carbon cycle science programs and activities.

Broader Impacts In the face of climate change and associated changes in atmospheric composition and ocean chemistry, a more comprehensive understanding of ocean biogeochemistry and ecosystem processes is critically needed to improve our predictive capabilities and provide the framework for the development of sound adaptation strategies. The OCB Project Office will facilitate a more integrated scientific approach by providing critical coordination and logistical support to enhance the efforts of the U.S. research community. Through a grassroots, community driven approach, the proposed OCB workshops and courses will give OCB scientists a public venue for discussing research challenges and implementation approaches to address OCB research priorities. The Project Office will support the OCB SSC and other OCB subcommittees (i.e., ocean acidification, time-series) which provide valuable guidance on U.S. research priorities and coordination efforts. Another increasingly important role of the OCB Project Office is to engage the OCB community in other national and international carbon cycle science programs and activities (e.g., NACP, IOCCP, IMBER, etc.) thus placing ocean biogeochemical research in the broader context of marine ecology, global carbon cycle, and climate science. The communication of OCB activities and priorities is fundamental to community building and outreach. The Project Office will work to expand the OCB network by continuing production of a regular newsletter, augmenting OCB’s web presence by expanding its project information, field opportunities, and tools and resources for OCB scientists, and developing hands-on outreach products for scientists, educators, and policy makers.